Undergraduate Laboratory Improvement for Earth System Science and Global Change

Undergraduate science education for students majoring in science and engineering, and students who are non-science majors must evolve to bring all students in contact with the tools needed to grasp critical and emerging scientific issues. In 1991 the University of Arizona started a two-semester sequence Introduction to Global Change to teach non-science majors about the earth system. The course teaches basic scientific principles in the context of global problems and challenges facing scientists, policy makers and citizens alike. This proposal provides for the computer equipment needed to fully implement the laboratory exercises that we have developed and are continuing to improve. Besides this introductory course, undergraduate classes in global change, remote sensing, and hydrology will use the computer laboratory to enhance and expand their laboratory experiences. This multidisciplinary teaching effort is part of the University of Arizona's commitment to the study of global change.